A Phylogenetic Analysis of the Subulitidae (Mollusca: Mesogastropoda)

In this first application to NSF by a recent Ph.D., Dr. Douglas Erwin proposes a phylogenetic study of a difficult group of Paleozoic gastropods, using traditional characters supplemented with morphometric analysis. The family Subulitidae are an important group in that they display a mosaic of primitive and advanced characters. The proposed research would use a microcomputer-based image analysis system to measure subtle morphological features, and then convert these measures into discrete characters for phylogenetic analysis. New systematic procedures will result, along with a better understanding of the systematics and evolution of a pivotal group of gastropods. This project is an ambitious attempt to use morphometric analysis to define characters for reconstructing ancestor- descendant relationships. Developing such a set of procedures would have wide impact on systematic practices in essentially all groups of organisms. The potential implications of such procedures are broad and highly significant.